Mathematical Sciences: The Dynamical Theory of Tilings and Multi-dimensional Symbolic Dynamics

Robinson will continue his study of a periodic tilings of Euclidean space. The approach is to view sets of tilings as compact metric spaces, and to study the dynamics of R^n acting on such spaces by translation. In this context, many standard dynamical properties correspond to important properties of tilings. This project involves research in ergodic theory. Ergodic theory in general concerns understanding the average behavior of systems whose dynamics is too complicated or chaotic to be followed in microscopic detail. Under the heading "dynamics can be placed the modern theory of how groups of abstract transformations act on smooth spaces. In this way, ergodic theory makes contact with geometry in its quest to classify flows on homogeneous spaces.